Teaching Through Outreach: The Institutionalized GK-12 Model

This proposal describes an Accomplished Based Renewal of the Tufts' Engineering: the Next Steps (TENS) GK-12 project entitled "Teaching Through Outreach: The Institutionalized GK-12 Model". This project would continue the work begun in the summer of 2003 on Track 2 funding from NSF. The long-term goal is to increase pre-college engineering education on a national scale and see the GK-12 model as one successful way of accomplishing this. Funding for this project will more research to be done on the impact of the GK-12 program on the attitudes and engineering skills of participating fellows. In addition, the project team will gather and disseminate the best practices developed at GK-12 (and GK-12-like) programs across the nation in an effort to increase communication between these groups. This project will continue its partnership with the Malden, MA school system.